Gender and Small Business Success

This is a study of small business success. The small business arena, a growing sector of the economy which women have been entering in record numbers, provides an important context in which to examine fundamental theoretical issues of gender, work and family. This project combines a survey and intensive interviews with small business owners in upstate New York. The study is organized around two interrelated questions: 1) Through what mechanisms do structural and individual variables contribute to inequality between men and women owners? 2) How does family intersect with work to shape the economic and personal lives of these women and men? %%% This project charts new territory in four major ways. First, it traces the specific ways in which a broad range of structural and individual variables combine to affect both economic and personal outcomes such as emotional well-being. Particular attention is paid to the direct and indirect paths through which personal and family characteristics affect both economic and personal success. Second, this study brings together such seemingly disparate areas of inquiry as the economics of small business, work-family linkages, gender and reasoning, and emotional well-being. Such integration should enhance understanding not only of gender and small business ownership, but of the dynamics of gender, work and family more generally. Third, key work and family issues are examined from the perspective of women and men who have more control than most over all aspects of their work, including the boundaries between work and family. Finally, the use of both quantitative and qualitative research techniques will enhance the quality of the data and the strength of the conclusions.